U.S.-Korea Cooperative Research: Precision Spectroscopy of Atomic Cesium in High-Gradient and High-Intensity Electromagnetic Fields

9421662 Wieman This award provides funds to permit Dr. Carl E. Wieman, Department of Physics and Joint Institute for Laboratory Astrophysics, University of Colorado, to pursue with Dr. Donghyun Cho, Department of Physics, Korea University, for 24 months, a program of cooperative research involving high-precision spectroscopic measurements on spin-polarized cesium atoms which are subjected to various electromagnetic fields. The collaborators will use apparatus which they developed to study phenomena produced when these cesium atoms are subjected to very intense, tunable, narrowband, laser light at 540 nm. In addition to producing high-precision data about the cesium atom itself, the proposed research will use new ideas and techniques that will have general application in the field of measurement science. The collaborators have a common interest in high precision spectroscopy of atomic systems. Dr. Cho has participated in construction of the apparatus to be used at the University of Colorado and will develop, in Korea, additional equipment which will lead to improved sensitivity in the proposed experiments. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF). ***